Identifying and Implementing a Coordinated Strategy for Voice over IP in Higher Education

This workshop by the Net@EDU Project within EDUCAUSE and the follow-on information dissemination activities are designed to generate an analysis of voice-over-IP (VoIP) options, strategies, and best practices. The results will be made available to the community of universities and parties involved in NGI, Internet2, and other related initiatives. VoIP promises to be an important technology on emerging, advanced networks. One of Net@EDU's special interest groups has already been working these issues. They will be
involved in these workshops and already have some useful work done that should help to jump start and accelerate this workshop activity and the quality of the proceedings.